Integration of Image Acquisition and Surface Estimation for Active Stereo Vision Using Multiple Cues

Active computer vision exploits control of foveation, focus, and stereo vergence to generate surface maps of complex scenes, in much the same way that humans control gaze direction, lens deformation, and eye vergence. This grant will support two graduate students developing algorithms for real-time control of an active stereo range-mapping system. The work is motivated by Sperling's model of biological vision, and will augment a testbed system in which plausible techniques of active vision may be tested.